Mathematical Sciences: Topology and Geometry of Algebraic Varieties

Pardon will study the topological and geometric properties of an algebraic variety (the set of solutions of some polynomial equations), particularly when the variety is singular (not smooth). On the geometric side, he will study the spectrum of the Laplace operator on such spaces in order to obtain information about their singularities. Of particular interest are spectral invariants which turn out to be rational, since they are most likely to be topological invariants. Hain, with the help of his students, plans to continue his study of the topology of spaces that parameterize compact riemann surfaces and configurations of points on them. The main objectives of the project are to compute and/or gain qualitative information about the cohomology of these moduli and configuration spaces, both with trivial and twisted coefficients. These results should yield geometric results in algebraic geometry, and may have applications to particle physics via conformal field theory. The main tools to be used are Hodge theory and representation theory combined with traditional geometric methods. The topology and geometry of spaces defined as solution sets of systems of polynomial equations is a surprisingly rich subject, having applications in many diverse areas of mathematics and mathematical physics. The investigators and their graduate students are bringing to bear a marvelously varied arsenal of techniques. Of particular interest are constructions that depend explicitly upon features of the geometry of a space, area, distance, curvature, and so forth, and yet combine them in such a way as to be provably dependent only on the topology of the space, that is on features of the space so basic as to be unaffected by stretching and distorting its shape, short of cutting or tearing.